Bioanalytical Chemistry and Separation Techniques in the Undergraduate Analytical Chemistry Course

The two five-day, regional workshops will each provide 30 faculty teaching introductory analytical chemistry courses at two- and four-year colleges with information on recent advances in the separations sciences, and with hands-on experiences with state-of-the-art separations techniques that have been or are becoming widely used in analytical and bioanalytical chemistry. Experiments emphasizing biological applications will include the separation of enantiomeric mixtures of pharmaceuticals; peptide mapping; separations of serum ions by capillary electrophoresis; and the detection of DNA adducts. The final day will include a round-table discussion of how the information presented during the workshops can be transferred to the classrooms of the participants.